Swash Zone Hydrodynamics

0095834/Liu

The intent of this project is to develop an improved capability for
modeling wave run-up on a beach, i.e. the swash zone. One of the major
effects that the project will tackle is how to combine modeling of the
free flow over the beach with the effects of exchange with flow within
the permeable beach. The approach will combine numerical modeling
efforts with comparisons to data from field experiments in the swash
zone on Californian beaches and from laboratory experiments to be
conducted at Cornell. The modeling approach is to combine a RANS
model, presently used for flow over an impermeable beach, with a model
for flow through a permeable beach. An effort will be made to improve
the modeling of flow within the beach by applying an analogue of the
Reynolds averaging technique to flow in porous media. In addition a
depth averaged version of the RANS model will be modified to include
parameterizations of the interaction with permeable beaches. The
laboratory work will look at the interaction of solitary waves and
periodic wavetrains with several types of planar beach including smooth
impermeable, rough impermeable, and porous beaches. The field results
that will be used to guide the model development are from experiments at
Scripps Beach and Torrey Pines Beach in San Diego. These latter
experiments were carried out by B. Raubenheimer who is collaborating in
this project on a sub-contract from Cornell to WHOI.